Mathematical Sciences: Geometric Function Theory

Two main themes highlight this mathematical work. The first is a continuing joint effort to analyze properties of the Laplace operator for compact Riemannian manifolds. It is the natural differential operator which would be used to describe the motion of the manifold under vibration. The eigenvalues of the operator can be viewed as the fundamental frequencies. The sum of negative powers of the eigenvalues is the associated zeta function and the derivative of this function (evaluated at zero) is defined to be the logarithm of the operator. The manifold is defined by means of a metric, and the logarithm is called the height of the metric. The analysis of the height as a function of the metric is the main objective of this component of the research. Typical of the questions still unanswered is that of finding the hyperbolic structure of a manifold for which the height is a minimum. Closely related to the these questions is the fundamental isospectral problem of showing that an isospectral set of closed surfaces or plane domains is finite. The height function was the basic tool used in showing that isospectral sets are compact. Some type of rigidity result must now be established to go from compact to finite. The second theme concerns a generalization of the Schwarzian derivative to conformal metrics and conformal mappings of higher dimensional Riemannian manifolds. This derivative measures precisely when a function defined in a disc must be univalent. A new definition for Riemannian manifolds has been given as a symmetric tensor which yields a criterion for locally univalent maps from the manifold to a sphere to be globally univalent. Some technical assumptions must prevail. The principal remaining goal is one of showing that the injectivity condition satisfied by the Schwarzian is also necessary.